Atmospheric Particulate Organic Nitrates by Photoelectron Resonance Capture Ionization-Mass Spectrometry

This project develops an analytical system using photoelectric resonance electron capture ionization mass spectrometry (PERCI-MS), a technique based on soft-ionization which minimizes the fragmentation of the analyte ions. The system design will enable the measurement of nitrated organics including nitro-polycyclic aromatic hydrocarbons (NPAHs) in atmospheric particulates, useful in gauging the health effects and environmental impact of organics bound to ambient particulate matter. Resonance electron capture profiles will be measured for a number of nitrated organic compounds in order to study radical-initiated particle-phase mechanisms of NPAH formation. In collaboration with the University of North Carolina, an outdoor reaction chamber will be used to analyze organic nitrates formed during secondary aerosol formation. The PERCI-MS system will also be used to make measurements of ambient NPAHs during selected field deployments. The broader impacts of this project include direct relevance to atmospheric processes important to air quality and human health, the value of developing this soft-ionization technique as an analytical tool for atmospheric trace compounds, and support of education and professional development of undergraduate and graduate students in an important area of scientific research. The Division of Atmospheric Sciences Atmospheric Chemistry Program in the Geosciences Directorate and the Division of Chemistry Analytical and Surface Chemistry Cluster in the Mathematical and Physical Sciences Directorate support this award jointly.